8TH International Conference on Chlamydomonas, to be held in Tahoe City, California, June 2-7, 1998

MCB9804937 This award is to provide partial support for the 8th International Conference on the Cell and Molecular Biology of Chlamydomonas, to be held in Tahoe City, California on June 2-7, 1998. Since its inception in 1983, this now biennial conference has brought together American and foreign investigators from a variety of disciplines to discuss current studies on this organism. Chlamydomonas has been a favorite model organism to study such topics as cell motility, organelle heredity, gamete differentiation, cell adhesion, signal transduction, and cell fusion. Although Chlamydomonas investigators individually attend many other conferences, this conference is the only meeting that brings together most of these investigators to focus on the specific biological questions of their shared interest. Interactions among these scientists at this meeting, as in the past, should be particularly useful in providing rapid dissemination of new information, technological breakthroughs, and developing, widely applicable methodologies. The conference is also likely to be important in establishing fruitful collaborations and for the exchange of mutants and molecular probes which should promote the rapid advance of research on this organism. Furthermore, the conference will provide an invaluable opportunity for students and young investigators who attend to share in the excitement and new knowledge in this field. To promote this last aim, the award will be used specifically to support the attendance of graduate students, postdoctoral fellows and needy young faculty.